Oceanographic Instrumentation

The Moss Landing Marine Laboratory of San Jose State University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V POINT SUR, a research vessel owned by the NSF and operated by the University. A substantial part of the ship's operating schedule during 1990 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -A precision salinometer for determining the salinity of seawater and calibrating shipboard instrumentation. -Fluorometer and transmissometer for measuring chlorophyll and other optical properties in the water column, -Precision acoustic pinger for determining position of an instrument package relative to the surface or seafloor, and -Hydrodynamic wire depressor for maintaining the proper depth of towed instruments. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.